CAREER: Practical Data Synchronization: Minimizing Communication

Abstract:

The ever-increasing sophistication of computerized devices,
be they handheld electronic organizers or laptop computers,
demands an equally sophisticated means of synchronizing data
on these various devices. For example, an appointment schedule
modified on a handheld organizer might need to be synchronized with
a laptop business machine or a desktop home computer.
The limited communication power of these devices, combined with
their increasing numbers, means that it is no longer feasible to
simply compare all data on the devices and resolve differences.
Instead, this research investigates mathematical techniques for
summarizing data. By comparing such summaries of their data,
devices can resolve differences with surprisingly little communication.

More specifically, this investigator studies practical data
synchronization techniques that minimize communication complexity,
building upon a foundation of recent research connecting these
techniques to graph coloring problems and the design of error-control
codes. Preliminary results offer practical solutions that
require communication dependent only on the number of differences
between synchronizing systems and not generally on the overall size of
these systems. The research subsists on an attainable
educational plan that is based on immersing high school and
undergraduate students in properly focused components of the
work, supported by collaborating graduate students. Moreover, fruits
of the research have and will continue to be integrated innovatively